SGER: Applying Digital Evolution to Behavioral Models

ABSTRACT
0750787
Cheng
Michigan State

The Problem. Computing technology now affects nearly every dimension of modern society: managing
critical infrastructure such as power grids and telecommunication networks; supporting electronic commerce
and medical information systems; and controlling the operation of aircraft and automobiles. This pervasiveness of computing technology, coupled with its rapidly increasing complexity, gives rise to the need for computer systems that are able to adapt to changing conditions. In the last decade, extensive research has been conducted on many aspects of self-adaptive software systems. Examples include adaptive software mechanisms [1 20]; software-architecture-based techniques for supporting dynamic adaptation [21 38]; adaptable and extensible operating systems [39 42]; and requirements-level and formal methods-based techniques [43 52]. This research has greatly improved our understanding of adaptive software and several key supporting concepts, including computational reflection [53 55], separation of concerns [12, 56], component-based design [57, 58], and transparent interception of program flow [59 61].
Despite these advances, designing an adaptive software system remains a very challenging task. We speculate
that much of the difficulty is due to the fact that adaptive software is being designed and implemented using
traditional tools and environments intended for the development of non-adaptive software. We contend that the
full potential of dynamically adaptive software systems cannot be realized without fundamental advances in
the corresponding development environments. Such environments must enable developers to explicitly address
those aspects of the design problem that distinguish adaptive systems from non-adaptive systems. These issues
include anticipating how the software may need to adapt in the future, constructing decision-making software
to govern the adaptation, and ensuring that system integrity is not compromised by adaptation.